High Performance Computational Methods for Structural Mechanics

Growing interest in sophisticated structures such as next generation composite aircraft and large space structures, places increasing demands on the optimality of the structural components used. These demands are met by improving both the accuracy and efficiency of the computational tools used to develop and analyze these structures. However, the computational demands of these systems are so great, that engineers must frequently be satisfied with rather crude and simplified models in order to speed up the design cycle time. The true potential for execution improvement lies in improved solution algorithms and parallel computing. This interdisciplinary research program will focus on the design of efficient parallel computational methods for the finite element analysis of such complex structures. The research includes three components: computational mechanics, applied mathematics and applied computer sciences. The first component involves the development of discrete mathematical models based on finite elements for representing aerospace structures as assemblies of beams, plates and shells. The second component addresses the design of domain decomposition methods for static, transient, and vibration analyses using those models. The last research component aims to tuning these methods to massively parallel supercomputers.